Mathematical Sciences: Computer Science and Statistics: Opportunities at the Interface

This research aims to bring recent and anticipated advances in supercomputing, parallel architectures, multivariate graphics, simulation and stochastic processes to bear on developing new and improved methods for solving large-scale statistical problems. An example of such is finding efficient solutions to large-scale least squares problems. This award is to support the collection and dissemination of scientific findings on the interface between the fields of statistics and computer science. Activity at the interface between these two fields is not new. But because of the rapid advances in both fields, the nature of this activity has evolved rapidly and is constantly changing. Dissemination of these scientific findings will help stimulate the development of statistical methods to meet the new requirements of modern modes of scientific experimentation.